Fertility Transition in the Rural South, 1910 to 1940

This is a study of the decline in fertility in the American South between 1910 and 1940. Most studies of the transition from high to low fertility has focused on the national pattern. There were, however, striking regional variations in the timing and pace of the fertility decline. This study will pay special attention to the sharp decline in childbearing in rural black families which took place between 1910 and 1940. Public Use Samples from the 1910 and the 1940 Census will be used. These data will be combined with data on the local area in which the household lives. This study will provide a significant contribution to the large literature on the fertility transition by focusing on a part of American society which has not been much studied earlier. The study will contribute to our understanding of why couples decided to have fewer children, and it will in particular shed light on the experiences of rural black families during the early part of the twentieth century.